Mathematical Sciences: Hamiltonian Theory of Soliton Equations and Geometry of Moduli Spaces

Abstract

Proposal: DMS-9802577
Principl Investigator: Igor Krichever

The main objective of the present project is a further development of
the algebraic-geometric integration theory of non-linear equations,
models of solid state physics, and models of quantum field theories.
An immediate goal is a complete algebraic-geometric approach to the
Hamiltonian theory of integrable equations, applicable to 2D equations
as well as finite-dimensional models. Particular attention will be
paid to the investigation of the non-local symplectic structures for
2D integrable equations which arise in this way, and to the
Hamiltonian theory of finite-dimensional systems equivalent to the
pole dynamics of elliptic, trigonometric and rational solutions of 2D
soliton equations. Among these systems are spin-generalizations of
Calogero-Moser and Ruijsenaars-Schneider systems. These systems are
related to Seiberg-Witten solutions of N=2 supersymmetric gauge
theories, and have attracted recently considerable interest. Efforts
will also be devoted to the clarification of some unexpected relations
between Seiberg-Witten solutions of N=2 supersymmetric gauge theories
and topological field theories. The moduli spaces of
algebraic-geometric solutions of soliton equations provide a unifying
framework for these problems. Seiberg-Witten solutions are related to
the symplectic geometry of Jacobian bundles over these moduli spaces,
while topological field theories are related to their Riemannian
geometry. The effective Lagrangian in the first case and the free
energy in the second case are just restrictions of the exponential of
the tau-function of the universal Whitham hierarchy, which is itself a
corner stone of the perturbation theory of soliton equations. It is
very important to determine whether these relations can be explained
from first principles.

The algebraic-geometric theory of soliton equations developed in the
middle seventies has had enormous influence on many branches of
mathematics and theoretical physics. Originally it was mainly aimed to
construct exact solutions of the wide variety of equations describing
wave phenomena in the plasma physics, non-linear optics, oceanology,
super-conductivity. In recent years the universality of the methods
and ideas developed has led to the outreach far beyond the initial
framework. It includes applications to the string theory and
supersymmetric gauge theories. The new approach to the Hamiltonian
theory of soliton equations combines all these directions and should
allow us to make the next important step. A development of the
Hamiltonian theory of difference equations as a Hamiltonian theory of
systems with discrete time is a challenging problem which should
provide a bridge between classical and quantum integrable systems.